Coordinated Restructuring of Programs and Storage

Tiling is a well-known optimization technique that has been used to obtain orders of magnitude performance improvements on certain types of computer programs -- ones with nicely structured loops and regular memory accesses. This research will extend tiling and related optimization techniques to a larger class of programs. The methods employed to carry out these goals are: (1) Collect a corpus of scientific applications, including unstructured programs and programs with irregular memory accesses. (2) Build a high- level analysis tool to study this corpus and to provide information that can be used to guide program transformations. (3) Develop more powerful transformations to extend tiling to this corpus. These transformations will be embodied in a source-to- source program restructurer. (4) Build an architecturally-driven guidance system to guide the choice of transformations. This system will model the multitiered parallelism and memory hierarchies of modern computers. (5) Evaluate the new transformations compared to hand-optimized versions of the applications. The projected impact of the work is the development of compiler technology that will automatically improve the performance of a broad class of computer programs for scientific applications.